Rational Triangular Bezier Patches for Contouring and Design

This research is concerned with the applications of rational Bezier patches. Three specific problems are proposed. The first problem is concerned with the construction and contouring of piecewise quadratic, trivariate scattered data interpolants. The contours would be piecewise quadric surfaces and so could only be described parametrically in terms of rational patches. The second problems is concerned with when and how a rational patch can be reparametrized as a polynomial patch. The final problem is concerned with developing a suite of geometric algorithms for rational patches. The results should open up the subject to a wider audience and help provide insight for further study, as in the case for polynomial Bezier patches. Undergraduate student involvement will be through the University of North Carolina at Wilmington's Honor Program.